Mathematical Sciences: Eisenstein Series on the Metaplectic Group, Special Values of Automorphic L-Functions and Functional Equations

This award supports the research in Automorphic Forms of Professor Daniel Bump of Stanford University. Much of Dr. Bump's planned research is a continuation of joint work with S. Fried- berg of the University of California at Santa Cruz and J. Hoff- stein of Brown University. They exploit the occurrence of quadratic twists of automorphic L-functions of certain Eisenstein series on the metaplectic group, by applying to these Eisenstein series an integral convolution introduced by Novodvorsky. This results in a Dirichlet series with known poles, leading to nonvanishing theorems of a new type. They have already obtained a result which, when combined with recent work of Kolyvagin, has applications to the Birch-Swinnerton-Dyer conjectures on elliptic curves. Non-Euclidean plane geometry began in the early nineteenth century as a mathematical curiosity, but by the end of that century, mathematicians had realized that many objects of fundamental importance are non-Euclidean in their basic nature. The detailed study of non-Euclidean plane geometries has given rise to several branches of modern mathematics, of which the study of Modular and Automorphic Forms is one of the most active. This field is principally concerned with questions about the whole numbers, but in its use of Geometry and Analysis, it retains connection to its historical roots.